REU Site Program for Physics at the University of Notre Dame

This action will continue support for a particularly successful program involving undergraduates in significant and timely research projects. This involvement in research has had a decided impact on past students involved, and should continue to encourage students to consider a career in research.